Theory and Simulation of Ionosphere-Magnetosphere Coupling Dynamics

This project is a computational and theoretical study using a model that describes the coupling of the ionosphere and magnetosphere. The coupling process is the kinetic Alfven wave which originates in the magnetosphere. The mathematical approach is to use the three-dimensional Strauss equations with additional term corresponding to electron inertia. The effect of finite electron temperature will be included in the model. The computational approach is to use the 3-D fluid simulation code. The goal of this research is to understand the processes that are responsible for the evolution of discrete auroral arcs on about the one kilometer scale. A mechanism for the auroral electron acceleration due to kinetic Alfven waves, will be studied.//